Support Assistance for the SBER's Economic, Decision & Management Sciences Cluster

This is a contract to support assistance for the Social, Behavioral and Economic Research Division's Economic, Decision and Management Sciences Cluster.